Precision Light Curves as Probes of Fundamental Physics

AST-0507639
Michael Montgomery
The University of Texas at Austin
Precision Light Curves as Probes of Fundamental Physics
ABSTRACT
Three projects will be carried out centered around high speed photometry and the
resulting light curves from pulsating white dwarfs. First, the non-sinusoidal light curves
will be used to constrain and test developing models of convection and its dependence on
the temperature (evolution) and surface gravity (mass). A further expected outcome is
mode identification, which will be used to study the internal structures of the white
dwarfs. Second, the pulsation drift of hot helium-atmosphere white dwarfs will be
compared with models to determine the cooling rate due to neutrino production (via
plasmon decay). These results will be used to test theoretical models of neutrino
production in white dwarfs. Finally, the Sloan Digital Sky Survey archives will be
searched for additional hot and high-mass white dwarfs both for use in the above efforts
as well as to explore the temperatures and densities under which core crystallization takes
place. The problems to be approached here are fundamental issues in the field of compact
objects and the results are expected to have broader applications throughout astronomy
(particularly with regard to convection and neutrino cooling).
The project will directly involve a post doctoral researcher (the PI) and two graduate
students who will also be supported. The results of this work will form the core of Ms.
Agnes Kim's Ph.D. thesis. High school students and teachers will also take part in the
observing via remote connections.